CAREER: Autotuning Foundations for Exascale Computing

The goal of this research is to discover novel foundational principles
for developing highly-efficient and reliable software that can achieve
sustainable performance on the exascale computing platforms expected by
2020. Such platforms will deliver three orders of magnitude beyond
today’s systems; harnessing this raw computational power could
revolutionize our modeling and understanding of critical phenomena in
areas like climate modeling, energy, medicine, sustainability,
cosmology, engineering design, and massive-scale data analytics. Yet,
developing software for exascale systems is a tremendous challenge
because the hardware is complex and it is not believed that the most
productive “high-level” software development environments (e.g.,
programming languages and libraries) will be able to effectively exploit
these exascale systems.

The investigator aims to address this challenge by using automated
tuning (autotuning) to eliminate the low performance traditionally
associated with high-level programming models. This research (a)
develops new model-driven frameworks for tuning parallel algorithms and
data structures, going beyond existing techniques that focus on
low-level code tuning; and (b) studies autotuning for programs expressed
in high-level programming models, with the aim of eliminating the
performance gap. Concomitant with this research, the PI will create a
new practicum course: The HPC Garage. The HPC Garage physically
co-locates interdisciplinary teams in a social collaborative lab space;
the teams engage in a year-long competition, called the XD Prize, to
develop highly scalable algorithms and software for NSF TeraGrid’s
next-generation XD facilities. The HPC Garage also hosts summer interns
in Georgia Tech’s Computing Research Undergraduate Intern Summer
Experience (CRUISE) program, whose mission is to encourage students,
especially those from underrepresented groups, to pursue graduate
degrees in computing.